High Resolution Temporal Variability in Production, Mortality, and Transport of Foraminifers of the Continental Slope

Using SEEP II water column data and sedimentary trap samples, the PI's will address specific questions regarding planktonic production, mortality and downslope transport in the Slope environment. These trap samples were collected before, during and after major mesoscale hydrographic events such ad outbreaks of costal water and intrusion of warm-core rings. The working hypothesis is that much of the material that collects on the slope is advected there from shelf water.